SEP (Sustainable Energy Pathways) Grantees Meeting June 3-4, 2013. To be Held in Arlington, VA.

The SEP Grantees Workshop will bring together recipients of the twenty 2012 NSF Sustainable Energy Pathways awards for two days of discussion and interaction in a cross-disciplinary forum., NSF staff, leadership and invited speakers will participate to better understand linkages among researchers spanning from physical science to social & behavioral sciences on the complex challenges of transformative clean energy and its adoption by society.